Uses of Electronic Technology in Undergraduate Mathematics: A Workshop and Forum for College Faculty

Microcomputers have become increasingly commonplace in college mathematics departments and it is generally agreed that they have a significant role to play in enhancing the learning of mathematics. However, what this role is and how to implement it are not clear. The two one-week regional workshops planned for the Summer of 1989 are involving college mathematics faculty in learning to better utilize electronic technology in undergraduate education. The workshops are also serving as a forum for the exchange of ideas and information on this subject. A Resource Manual is also being produced that is allowing for the dissemination and enabling the participants to carry the results back to their home institutions where they will field test the results during the Fall of 1989. The host institution has a large state-of-the-art mathematics laboratory in which many of the core undergraduate courses from Intermediate Algebra to Differential Equations and Linear Algebra have been successfully integrated. The special facility and the amount of time and effort given to designing novel ways to use it, make the institution a natural site for the workshop. The participants will be contributing part of the costs of their participation in the program. In addition the host institution will contribute funds to help support the travel of the participants.